Mineral Dust Aerosols and Climate Variability

Abstract ATM-9727872 Miller, Ronald Columbia University TITLE: Mineral Dust Aerosols and Climate Variability The theme of this proposal is mineral dust aerosols as a contributor to and signature of climate variability. Numerical experiments will be designed, with the state of the art coupled Ocean-Atmosphere-dust generating models, to identify the processes controlling the variability of mineral dust within the atmosphere. Emphasis will be on the relation of dust to such familiar modes of atmospheric variability such as the Tropical Atlantic Oscillation (TAO), North Atlantic Oscillation NAO), and ENSO. This basic research will take the climate models closer to reality and make them better tools for projections into the future climate. r